The Integration of Computers into the Undergraduate Mathematics Curriculum via a Computer-equipped Classroom/ Laboratory

Students are using a computer classroom/laboratory equipped with Sun workstations running "Mathematica" and other software packages as an integral part of their learning environment in upper division mathematics courses. The integrated symbolic manipulation, computational, and graphics capability of "Mathematica" and the simulation of vector and parallel processors available in other packages allow students to perform experiments that lead to a better understanding of mathematical concepts in linear algebra, differential equations, probability and statistics, and numerical analysis. An extended series of faculty workshops will bring all members of the mathematics faculty into this program and is expected to lead to the use of this computer facility in over half of the mathematics classes within a few years. This project is being matched by an amount equal to the award.